American Chemical Society Women Chemists of Color Summit

This award by the Chemistry Division will support a workshop entitled: "American Chemical Society Women Chemists of Color Summit." The workshop will coincide with the Fall 2010 National ACS Meeting, in Boston, MA and will bring together chemists to discuss the issues faced by women chemists of color in the chemical workplace, particularly young and mid-career chemists. The heart of the workshop will consist of two symposia, informal networking events, and post-conference networking activities, including via web-based social networks.

If the United States is to take full advantage of its native intellectual capital, it must learn mechanisms to develop all of the underutilized sources. In science and technology fields, women and minorities are less prevalent than their fraction in the general population. Efforts like the one funded by the present award are making efforts to learn ways in which underrepresented groups can be recruited into and retained in the technological workforce.